Advanced Study of Precipitation Microphysics with Multi-Frequency Polarimetric Radar Observations and Data Assimilation

Progress toward more accurate short-range quantitative precipitation forecasts (QPF) depends on optimal use of high-resolution observations within cloud-resolving numerical weather prediction (NWP) models. Among available candidate observations, those from the U.S. network of operational S-band WSR-88D radars (which are soon to be upgraded with dual-polarization capabilities) are among the richest datasets available for ingest by both operational- and research-quality models. Prior efforts by this group of investigators advanced the characterization and retrieval of microphysical precipitation particle type and size distributions using both polarimetric-radar and ground-based disdrometer data, and supported development of forward operators and ensemble-Kalman filter based assimilation capabilities for a storm-scale NWP model. Efforts under the current project will extend to include data from multi-wavelength data (including high-resolution C-band and X-band polarimetric observations) to seek further improvements of QPF and potential for severe weather threatening life and property.

The intellectual merit of this effort centers on overcoming and correcting for non-Rayleigh scattering effects present at shorter wavelengths to allow full exploitation of these additional moment data in driving more accurate NWP simulations and (ultimately) short-term forecasts.

Broader impacts of this research will occur through graduate student and postdoc training and capitalization upon an ongoing large NOAA investment in adding dual-polarization capability to the existing operational WSR-88D radar network. Direct collaboration with staff at NOAA's Radar Operations Center will facilitate integration of developed algorithms and codes into a testbed (and perhaps ultimately operational) setting, and should aid utilization of quantitative (vs. presently more qualitative) information on storm microphysical properties to the maximum extent possible.